Deep-Sea Research II: Topical Studies in Oceanography: Ecology of the Southeastern Bering Sea & Progress in Oceanography: Variability in the Bering Sea Ecosystem

This proposal is a mechanism to disburse funds to the National Oceanographic and Atmospheric Administration for the acquisition of reprints of special journal editions containing key articles by numerous NSF arctic principle investigators on the ecosystems in the Bering Sea. The NOAA contact is placing the order on behalf of a NOAA editor/author and this is the only opportunity NSF will have to obtain copies for its own use. The material will be used at the suggestion of the Arctic Section Head for arctic section information functions - primarily to distribute to individuals as background information on what NSF scientists have done in the Bering Sea.